CAREER: Compiler Optimizations for Low Power

Current low power technology focuses on low power hardware designs
and OS-level power management. In contrast, compiler support for
low-power is still in its infancy, mainly due to the fact
that most classical optimizations for speed and space
typically reduce a program's overall power consumption as well,
making power as a separate optimization objective redundant.
However, recent trends and developments in architecture and OS
design have made power dissipation an optimization objective in its
own right. These recent developments are (1) more advanced OS-level
power management support, (2) availability of low-power wireless
communication, and (3) reconfigurable architectures with dynamic
voltage scaling capabilities. This project investigates low-power
optimizations in the context of the Java programming language. Java
has become the language of choice for portable programming across a
variety of different architectures, including mobile computers,
personal digital assistants (PDA), and embedded systems. Such devices
rely on battery power for significant periods of their up-time, if
not during the entire time of their operation, making power savings
a crucial issue. The new low-power optimizations may trade-off
execution time for power savings. They include application-driven
power management, location-aware method/task mapping to remote
servers, and instruction scheduling for reconfigurable architectures
with dynamic voltage scaling.